Partnership to Accelerate Commercialization of Kansas Bioscience Products and Technologies

0438691
Kramer

This award is to Kansas State University to support the activity described below for 36 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF-04556).

Partners
The partners include Kansas State University (Lead Institution), Advanced Manufacturing Institute (AMI), Agricultural Innovation Center (AIC), Bioprocessing & Industrial Value-Added Program (BIVAP), Kansas Department of Commerce (KDOC), Kansas Entrepreneurs & Small to Medium-Sized Manufacturers, Kansas Technology Enterprise Corporation (KTEC), Lawrence Regional Technology Center (LRTC), Mid-America Commercialization Corporation (MACC), and Value-Added Business Development Program (VABDP).

The primary objectives are: 1) create a structured process to identify university
intellectual property that is ripe for development; 2) create the infrastructure needed to transform
knowledge, inventions, and discoveries in bioscience-related research and applications into viable
products; 3) market this Early Stage Technology Development (ESTD) service throughout the university
and state; and 4) prepare a future workforce to develop new bioscience products and technologies.

Potential Economic Impact
This activity will provide general economic well being in Kansas. It will increase the transfer of technologies to Kansas companies; stimulate the formation of and assist the development of technology-based businesses in Kansas; increase new products brought to market; and provide access to an engineering resource that significantly accelerates the development and hardening of new bioscience-based products, processes, and technologies in Kansas.

The intellectual merit of the project is to simultaneously develop and formalize a process to accelerate the
commercial development of bioscience products and technologies and provide meaningful ESTD
experience to Kansas's future technology engineers and entrepreneurs.

The broader impacts of the activity concentrate on the creation of wealth and high-
paying jobs for the citizens of Kansas. In addition, creating a model process that benefits both the
technology creator/inventor and the recipient will stimulate transformation of intellectual property created
in both company and university laboratories into commercial products. Both undergraduate and graduate
students will be involved and educated about commercialization activities and thus, Kansas future
technology entrepreneurs will learn to define and conduct successful bioscience ESTD projects.